Wireless Connect at Mt. Shasta High

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years to support a wireless system to allow science students to use laptop computers in the field to communicate their real-time data to the school and thus to the other student researchers.